Two-Dimensional Guided Wave Spatial Light Controller Based on SIMOX Processing and Germanium-Silicon Alloys

In Phase I both total optical isolation and efficient guide to guide coupling were accomplished for the first time in silicon. Based upon these achievements, parallel arrays of electronically phase-modulated waveguide structures will be fabricated in Phase II, configured to spatially dissect an incident coherent planar waveform, and used to rotate the output light-beam through constructive interference effects in the far field. A two dimensional array of phase-control channels would allow scanning the beam over the entire image plane. Initial efforts will be focused on fabrication and testing of a one dimensional, horizontal array of rigid waveguides placed over a single buried SiO2 layer; this device has potential as an Optical Spectrum Analyzer for de-multiplexing sets of nominally 1.3 um laser signals running simultaneously in a single fiber communication system. Later, a double buried SIMOX structure with two silicon cores will be constructed to demonstrate the highly novel concept of vertical beam steering. Integration of the two sets of guides into a two dimensional structure will allow rapid agile steering in both directions.